CAREER: Development of Nanofabrication Techniques for Self-assembled Monolayer Based Biosensors

This Faculty Early Career Development (CAREER) project, supported in the Analytical and Surface Chemistry Program, focuses on the use of new technology developed by Professor Liu and her students at Wayne State University to very precisely modify surfaces incorporating self-assembled monolayers. Modification methods are being developed to allow the study of biorecognition processes and to use their specificity to develop new types of chemical sensors on very small (sub-micrometer) scales. This CAREER research project also involves the introduction of new surface chemistry courses and laboratories into the graduate and undergraduate curricula. Participation in a novel `Smart Sensor and Intelligent Devices`course by Professor Liu and her students will enhance the possible outcomes of this sort of interdisciplinary research. The integration of advanced materials processing methods and the expanding field of molecular biology has broadranging implications. Professor Liu and her students at Wayne State University have developed microfabrication methodologies which hold great promise for the assembly of devices which allow for the study of biorecognition processes which can be further utilized for the creation of sensor devices of extremely high specificity. The outcome of such research can be envisioned to extend to a new generation of environmental and biological monitors. Professor Liu extends the interdisciplinary nature of sensor development program to the graduate and undergraduate curricula to introduce her students to new ways of thinking about chemical research.